STTR Phase II: Development of a Compact Cloud Spectrometer and Impactor

This Small Business Technology Transfer (STTR) Phase II project will develop a compact cloud spectrometer and impactor (CSI) for the measurement and study of condensed water in the atmosphere. Condensed water includes cloud droplets and ice particles. Phase I demonstrated the feasibility of integrating a counterflow virtual impactor (CVI) for condensed water content (CWC) measurement together with a new forward scattering spectrometer system for measurement of the cloud droplet size distribution. This combined airborne instrument will be considerably lighter than previous versions of the two separate instruments, and easier to use. The objective of Phase II is a commercial, integrated instrument for the study of atmospheric condensed water content and droplet size distribution.

The accurate measurement of these parameters is important in weather prediction as well as understanding global climate change. This instrumentation will have worldwide application, and the users will be government, university, and commercial atmospheric research institutions.